CRI: Advanced Software Tools for Large-Scale Biophysical Neural Networks

IBN: 9634401 PI: Hiromoto Specific functional areas of the brain can contain 100,000 to 1 million neurons. When trying to model functional aspects of these neural networks it is critically important that the model is of a sufficiently large scale (greater than 1,000 neurons) to examine emergent properties of the network. Large-scale biophysical neural networks on the order of 10,000 neurons require efficient computational resources that are beyond the normal scope of single high-speed computer workstations. Advances in interprocessor communications and algorithms for computing large-scale problems now permit us to apply these methods to neurophysiological questions. In this work, we intend to develop tools that can be used to investigate how networks of biophysical models of neurons behave based on known anatomical connectivity, cellular neurophysiology, and rules for synaptic plasticity. Our project has two specific aims. First, we will develop algorithms and supporting software that exploit the inherent properties of parallel computational architectures for simulating the synchronous activity of neuron models interconnected by synapses that undergo activity-dependent changes in strength. Such changes may accompany learning. The simulator developed here will be user-modifiable at many levels allowing for the study of different brain regions having varied anatomical and physiological characteristics. Second, graphic visualization tools will be developed to better study and analyze the large amounts of data produced by the large-scale neural simulations. These will include methods to examine the states of individual neurons as well as the correlated activity of different neurons within the network.